Characterization of Metal Hydroxy Silicate Polymers and the Effect of These Dispersants on Flotation Behavior

The primary objectives of this project are: to establish the applicability of 27Al and 29Si NMR to provide concrete structural information about the metal hydroxy silicate hydrosol species: to provide gel filtration chromatography (GFC) evidence for the polymeric nature of these species and to use GFC to isolate discrete species: to correlate their pH stability range and species composition from NMR and GFC studies with Ferron and Molybdsilicate assays: to define the mechanism of dispersant absorption to various minerals usingelectrokinetic, turbidimetric, and solid state NMR techniques, and to quantify the flotation of copper minerals with a range of Si/Al dispersants usingmicroflotation techniques. The dispersant properties will be quantified with natural copper ores.